Precision calculation of atomic properties

9314907 Chung Calculations for ionization potentials, excitation energies, fine structures, oscillator strengths and isotope shifts in atomic systems of greater than four electrons will be performed using the full core plus correlation method. The computer code will also be extended to treat a relativistic hamiltonian and the program will be made user friendly and available to experimentalists. ***